Fundamental Properties of GaAsN and InGaAsN - Toward Optoelectronic Applications

It is proposed to grow and characterize ternary alloys of conventional III-V
compounds (e.g. GaAs, InAs) with III-N compounds (e.g. GaN, InN) on GaAs
substrates. These alloys are expected to be cubic with the zincblende structure and to
possess a direct bandgap. However, the large lattice mismatch between GaAs and GaN
and the difference in atomic orbital energies between As and N result in a very unusual
compositional dependence of the bandgap. The optical bowing coefficients in GaAs1-xNx
are at least an order of magnitude greater than those encountered in common III-V
alloys. Its bandgap decreases rapidly with increasing N fraction. This offers a possibility
of preparing novel optoelectronic devices, on GaAs substrates, operating in the 1.3 - 1.55
mm range.

The materials needed for this study will be grown by Metalorganic Molecular
Beam Epitaxy (MOMBE). The effect of nitrogen incorporation on physical
microstructure and optical bandgap of epitaxial layers will be determined by a variety of
experimental techniques. Raman scattering will be used to investigate microstructural
effects such as nitrogen incorporation, spontaneous ordering, and phase separation.
Raman results will be modeled using bond polarizability, a two-component molecular
model, finite size, and strain effects. Near band edge optical properties will be studied
extensively by cw and time-resolved photoluminescence. These will focus on how
nitrogen incorporation modifies carrier recombination. Ellipsometry and reflectance
methods will be used to gain information of the above-bandgap optical properties.
Phenomenological deformation potentials model will be used to account for strain effects
in quantum wells and superlattices of InGaAsN/GaAs. Finally, quantum well structures
based on InGaAsN/GaAs will be used as active layers to make vertical cavity lasers
operating in the wavelength range of 1.3-1.55 mm.